The 17th International Conference on Cognitive and Neural Systems (ICCNS), - May-June, 2013 - Boston, MA

Major themes of the International Conference on Cognitive and Neural Systems (ICCNS) are: How does the brain control behavior? How can technology emulate biological intelligence? The conference is aimed at researchers and students in experimental and theoretical cognitive science and neuroscience, neural networks, computer science, neuromorphic engineering, artificial intelligence, mathematics, and physics. It includes invited lectures by distinguished scientists and engineers (with good representation of female scholars), and contributed lectures and posters by students and experts on the biology and technology of how the brain and other intelligent systems adapt to a changing world. There is an emphasis on enabling young scientists and students to present their work.